Project Skymath - Planning Grant

The University Corporation for Atmospheric Research will convene a workshop on August 10-12, 1992 to creare a comprehensive plan for Project Skymath, a program based on the success of UCAR's Unidata program. Unidata distributes weather and atmospheric data to universities and colleges in a format that facilitates computer manipulation of these data; skymath proposes to do the same for the nation's pre- collegiate schools. Skymath participants includes nationally known and respeted math eduators at all levels, mathematicians, and data transfer and matherials development specialists. This team will develop lassroom materials that utilize daily weather and climate data in the teaching of mathematics at K-12 schools with an initial focus on grades 5-8. Plans for Project Skymath include the introduction of the Skymath materials to in- and pre-service teachers across the countryl Lesson plans will follow the standards of the National Council for Teachers of Mathematics (NCTM). For example, students will collect and record real-time data; will organize, manipulate and graph these data; and will learn to explore functions that rule these graphs. Skymath will help students to become active learners, incorporating mathematics, physics, atmospheric sciences, earth and environmental scienes and computer technology.